Exact Learning with Queries

Learning theory is concerned with the rigorous study of concept classes under well- established criteria for learnability. Most of the current research focuses on expanding the frontiers of the concept classes known to be learnable. Two different but related models for learning are the probably approximately correct (PAC) model and the exact learning model with equivalence and membership queries. This project derives its motivation from recent results in exact learning with queries and from practical considerations of limited data available for inference. Many concept classes which are not efficiently learnable with queries if cryptographic assumptions hold are possibly exactly learnable in a model where considerations of time-efficiency are relaxed, but considerations of limited data are made paramount. Such a model is formalized along with a discussion of partial results. This project concentrates on the reinvestigation of the learnability of natural concept classes which have been neglected in view of known negative results. Where possible, efficient learning algorithms are developed according to both exact and PAC criteria.